Wireless Communication Systems Laboratory Short Course for Electrical Engineering Faculty

Wireless information networks are taking an expanding role in the world's telecommunication infrastructure and interest in wireless communications is growing faster than ever. It is important for schools of electrical engineering and computer engineering to prepare their students for careers in this important discipline. This project offers a short course suitable for electrical engineering undergraduate faculty interested in developing a wireless Communication Systems Laboratory at their home institution. Twelve faculty will be instructed through a series of lectures, discussion, experimental work, and one computer simulation in various topics essential to developing a wireless communications laboratory and sample projects. This project builds upon a laboratory developed via an Instrumentation and Laboratory Improvement grant.